Collaborative Research: Human Resources for Computational High Energy Physics

This is a group proposal in computational high energy physics to be carried out by the
MILC Collaboration This research addresses fundamental
questions in high energy and nuclear physics, and is directly related to major
experimental programs in these fields. It requires very large scale numerical calculations
that are widely recognized as one of the grand challenges of computational science.
The human resources proposed here will enable us to attack several crucial new physics
issues. These include (1) a study of the electromagnetic effects and nonperturbative mass
renormalization needed to obtain a precise determination of the masses of the light quarks
(2) a new high-precision theoretical determination of the nucleon mass (3) a determination
of mixing parameters for the B and K mesons needed to fix fundamental constants in nature
and (4) a study of the thermodynamics of the quark-gluon plasma at nonzero nuclear
density. These initiatives require the development of new application codes within the
MILC framework, the running of those codes, and the detailed analysis of the output to
extract the relevant physical results. This project supports the needed postdoctoral
research associates to carry this work to fruition.